Carbon Isotope Fractionation in Magnesian Calcite: Effects of Precipitation Rate and Mg Content

This is the first experimental study of the effect of magnesium content and precipitation rate on the 13C of magnesian calcite. Magnesian calcite (Mg-calcite), calcite with roughtly greater than 10 mole percent MgCO3, is an important and often dominant component of shallow marine sediments, and serves as a Mg and CO3 source for subsequent dolomitization. Surprisingly, the 13C fractionation between Mg-calcite and HCO3 has never been determined. Experimental procedures have been developed for the precipitation of calcite and aragonite at constant rates in solutions of constant temperature and chemical and isotopic composition. Eighty-five previous experiments yield calcite- HCO3 and aragonite-HCO3 13C enrichment factors averaging 1.0 and 2.5% respectively. Calcite-HCO3 enrichment factors ( cl-HCO3-) do not vary significantly with temperature (10o to 40oC) or precipitation rate (103.0 to 105.2 umol m2hr1). Aragonite-HCO3 enrichment factors ( ar-HCO3) show a weak correlation with temperature, suggesting that ar-HCO3 decreases 0.020%oC-1. Only in experiments at 10o and 25oC does ar-HCO3 exhibits a weak inverse correlation with precipitation rate. The project includes roughly 30 experiments at 25oC over a range of precipitation rates between 2 and 5 umol m2 hr1 for solutions having Mg/Ca ratios of 5 to 20, producing Mg-calcites with 7 to 20 mole % MgCO3. Determination of these Mg-calcite-HCO3 13C fractionation relations will permit researchers to better quantify the original isotopic composition of marine sediments and waters, vital information for studies of global change and carbonate diagenesis.